Topics in Path Integration and Nonequilibrium Statistical Mechanics (Physics)

This research by a world expert on the development and applications of path integral methods is exploring a new form of the asymptotic stationary phase approximation, developing a path integral for the Dirac equation, and applying path integrals to metastability and first order phase transitions.